REU Site: Atmospheric Measurement and Data Analysis

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on remote sensing of the atmosphere and provides a unique opportunity to study the atmosphere using a broad range of ground instrumentation, satellite data feeds, and national and international instrument networks. The students will develop skills in data collection, data analysis techniques, and scientific communication through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future air quality and hazardous weather challenges. This Site is supported by the Department of Defense in partnership with the NSF REU program.